2011 Graduate Climate Conference on Climate and Climate Change in an Array of Disciplines; Woods Hole, MA; October 28-30, 2011

This awards helps support the 2011 Graduate Climate Conference workshop from October 28-30, 2011 at the Woods Hole Oceanographic Institute. Specifically, the award provides support to approximately ten students for travel, housing, conference fees, and other costs incidental to participating in the two day climate science conference.

This graduate student organized conference is now in its fifth year and is a good venue for early career scientists to exchange ideas, formally and informally, on climate research and to foster interdisciplinary interactions. The general science topics planned for the meeting include paleoclimatology, atmosphere/ocean dynamics, biogeochemical cycles, the cryosphere, clouds/aerosols, climate forcing and feedbacks, and the biosphere. A unique feature of this year's conference is the attendance of advanced undergraduate science students. The abstract for all presentations made at the conference will be published online at MIT and archived for two years.